I-SEE Paradigm for Multi-Disciplinary Learning and Collaboration

PROPOSAL NO.: 0230691
PRINCIPAL INVESTIGATOR: Siginer, Dennis
INSTITUTION NAME: Wichita State University
TITLE: I-SEE Paradigm for Multi-Disciplinary Learning and Collaboration

Abstract

The ultimate goal of this implementation project is to develop a plan to produce the multi-disciplinary engineering-team graduate. This will be a person, who exhibits all the attributes required by the Accreditation Board for Engineering and Technology (ABET), along with a new attribute, being collaborative-engineering and team skill savvy. The implementation project will facilitate transformation of the curriculum from a set of separate unconnected programs and courses to one in which they are connected via a common unifying theme on design. This transformation involves more than including the design in the courses but also the integration of multiple perspectives into the learning process. In the planning project, the planning team will devise methods for assisting faculty and students with this transformation. At the completion of the planning project, the methods and scaffolding will be documented ready for implementation and dissemination.

This process will be facilitated in ways that incorporate the best teaching practices validated through current educational research and current research about learning and cognition.